Projection Methods for Multiscale Problems in Plasma Physics and Applications

Chorin and Tokman
The investigators develop numerical methods that will be
effective in long-time simulations of the multi-scale phenomena
evident in plasma dynamics, particularly in modeling magnetic
reconnection. They also use the methods in studies of plasma
dynamics in the solar corona and in laboratory experiments. They
make available a software implementation of the methods. The
methods combine projection techniques with schemes of exponential
propagation type for time-stepping.
The dynamical behavior seen in astrophysical and laboratory
plasmas is complicated, and to understand it requires computer
simulations. But the phenomena of interest span a wide range of
length and time scales. Consequently, to compute accurately the
solutions of the equations that describe these phenomena,
conventional numerical methods require small steps in time over
very long time periods. Similarly, accurate spatial resolution of
the solutions requires fine spatial meshes. Together, these
factors require solving very large systems of equations at each
time step, for a great many time steps. Such calculations are
expensive. The investigators develop and analysze numerical
methods that promise to reduce the computational costs, and apply
them to study plasma physics problems. They make the methods
available in software. This widens the potential impact of the
work, because problems with multiple scales arise in a variety of
science and engineering applications.